Counting Van Gogh and Vermeer

PROJECT ABSTRACT
“Counting Van Gogh and Vermeer”

Automated thread counting algorithms, in development since 2007 by Professors Rick Johnson
(Cornell University) and Don Johnson (Rice University), are poised for a profound impact on the
practice of technical art history. This work is a pioneering effort in the emerging application of
signal and image processing to the analysis of paintings. The approach is based on the utilization
of spectral analysis of x-rays of paintings. X-rays can display the periodic intensity pattern due
to the greater thickness of the lead white ground between the canvas threads. With the addition
of innovative application-speciﬁc signal processing, local peaks in the spectrum of the x-ray data
can reveal the numbers of threads per centimeter, i.e. a thread count, separately for (nearly) ver-
tically and (nearly) horizontally oriented threads. Such thread counts have been used previously,
but their manual acquisition proved too costly to be done thoroughly. The introduction of the
capability to assemble previously unthinkable thread density and angle pattern maps of high de-
tail across the entire surface of a painting leads to correlation-based identiﬁcation of canvases
sharing the same pattern in thread density variations. Such weave maps and matches can now be
assembled across all of the paintings on canvas of a single artist or school, thereby signiﬁcantly
extending the art historian’s capabilities in, for example, dating and attribution.
The scale, breadth, and depth of such thread-counting projects represent a bold leap in the
capabilities of technical art history. This grant supports the analysis phase of the ﬁrst projects
of such grand scope: the thread counting and subsequent weave matching among (i) all of the
paintings by Vincent van Gogh (for which data can be obtained by the end of 2010) and (ii)
all of the paintings by the Delft School during the career of Johannes Vermeer (for which data
can be obtained by the end of 2010). This grant places Professors Rick and Don Johnson in
the center of the data fusion, data analysis and database creation activities that are scheduled
to occur in Amsterdam during the spring of 2011. The archives being established of thread
count reports, including weave density maps providing ﬁngerprints for weave matching and angle
maps for characterizing cusping, form a groundbreaking resource at a time when museums are
just beginning to address the technological and cultural barriers to technical data sharing among
museums and collaborating researchers outside the museum. This project is part of a long-term
effort that aims to expand the utility of thread counting from x-rays to all suitable oil paintings on
canvas, and to photos of unlined backs of old master paintings and of the raw canvas, for example,
of the modern colorﬁeld painters and of densely-woven, multi-pattern fabrics prominent in the
design and decorative arts.